Symposium Support - Environmental Applications of Ionizing Radiation

This grant provides support for a symposium entitled "Environmental Applications of Ionizing Radiation" for the purpose of synthesizing the existing knowledge on the application of ionizing radiation, gamma radiation and electron beams, to environmental treatment processes. The symposiun will be held in conjunction with the 2000 International Chemical Congress of Pacific Basin Societies (Pacifichem 2000) in December 2000. The Congress is sponsored jointly by the American Chemical Society, the Canadian Society for Chemistry, the Chemical Society of Japan, the New Zealand Institute of Chemistry and the Royal Australian Chemical Institute. The symposium, a sequel to the successful symposium held during Pacifichem 1995, is being organized by Dr. William J. Cooper, University of North Carolina Wilmington. A major output of the symposium will be the identification of research needs in the field of environmental applications of ionizing radiation. This grant will support transportation, lodging and registration costs of invited participants from the United States.